University of Maine System Connection to NSFnet

The proposed project would connect the eight campuses in the University of Maine System to the NSFNET. The System's Computing and Data Processing Services has in place the initial nodes of a TCP/IP based network currently connecting the three largest campuses. Additionally, several private colleges in Maine will be offered connectivity to the University's System. A high speed link is proposed (1.5 million bits per second), which would connect the Portland Campus with a major NSFNET node in the Boston area. The Portland Campus, in turn is connected to the other System's major campuses via high speed links provided by the University. Once the connection is established, researchers using computers can exchange data with any other NSFNET site with great ease. It also significantly facilitates data transfer between the mainframes at the University of Maine campuses with other advanced facilities on the NSFNET and provides remote log-in capabilities from the System's campuses to supercomputer centers and allows for quick transfer of results to local computers for analysis.***